CISE Research Instrumentation: Computer Graphics Dynamic Simulation for Scientific Inquiry

Video Recording Equipment will be provided for researchers at Cornell University for research in the Department of Computer Science. The equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The equipment will be used to: 1. Record dynamic computer generated simulations onto videotape 2. Capture time-dependent animated displays